Program for Gender Equity in Science, Mathematics, Engineering and Technology (PGE): DEM:Women on the Prairie: Bringing Girls into Science through Environmental Stewardship

This demonstration project, a collaborative network of faculty, public school teachers
and counselors, and professionals in both private sector/non-profit organizations will
deliver and evaluate activities designed to bolster and reinforce the interest of
middle-school girls in SMET disciplines and careers. These activities are based on
research showing that access to role models, career information, and hands-on
activities have beneficial effects. A hands-on summer workshop, industrial site
tours, classroom activities, visits with women scientists and engineers, activities
developed in conjunction with commercial and service organizations, and a web site
characterize the intervention for the 6th and 7th grade girls who participate.
Furthermore, in response to research showing that professional development for
teachers, interactions between teachers and scientists, and implementation of
methods to address diversity and gender equity issues are of paramount importance
in creating more gender equitable classrooms, middle-school and high-school teacher
in science and mathematics will be invited to partner with University faculty in
developing the summer workshop activities. In addition, they will be invited to
participate in a graduate-level course on gender equity in science and mathematics
education and conduct action research projects that can be shared within the
collaborative network. Finally, packets with information on both various SMET
careers and on women who are currently employed in these fields, will be
distributed to school counselors, the parents of girls in Girl Scout troops, and
the parents of those girls who participate in the project activities. Summative
evaluation will focus on the comparison of SMET course-taking patterns and course
grades of participants in the project activities compared to a matched sample of
girls who did not participate.